Block International Travel funds for the 35 IEEE Conference on Decision and Control in Kobe, Japan, December 11-13, 1996

9531385 Antsaklis This is a request for block international travel funds for the 35th IEEE Conference on Decision and Control (CDC) to be held in Kobe, Japan from December 11th to 13th, 1996. The CDC is one of the world's largest and most important conferences on control theory and applications. The Kobe location will be only the third time the CDC has been held outside the United States. The requested funds will be instrumental in improving the technical success of the conference by enabling participation of sufficient numbers of key U.S. authors. ***